Wideband cognitive sensing from a few bits

Objective:
Spectrum sensing is the most important element of cognitive radio, as it forms the ba-
sis for adaptive spectrum sharing. Wideband spectrum sensing without frequency sweeping or
Nyquist-rate sampling is a challenging problem, especially for network sensing from low-end sen-
sors with limited communication capabilities. Assume that each sensor can only down-convert,
filter, and send out a binary signal when it measures energy above threshold at its filter’s output.
Is it possible to form a satisfactory estimate of the ambient power spectrum using just a few such
bits? This is the question at the core of this project, and exciting preliminary results suggest that
the answer is on the affirmative. A well-rounded research program has been designed to build
upon these preliminary findings. The research will evolve along four thrusts: i) core system design
and performance analysis; ii) distributed implementation; iii) relevant extensions, such as adaptive
sensing; and iv) software radio experiments.

Intellectual merit:
Power spectrum estimation from few wideband energy detection bits has never
been considered - yet is a fundamental extension of spectral analysis. Exciting new applications
of convex optimization theory and methods will be found in the area of network-based spectrum
estimation.

Broader impacts:
Wideband spectrum sensing using cheap sensors and few bits is a transformative
idea that has the potential to permeate the benefits of cognitive radio down to commodity hardware
- something currently far from reality. The topic is highly conducive for involving students and
training the next generation of wireless engineers.